Human Factors Research on Voting Machines and Ballot Designs: An Exploratory Assessment

EIA-0210634 Paul Herrnson University of Maryland SGER: Human Factors Research on Voting Machines and Ballot Design: An Exploratory Assessment

This grant will support an exploratory assessment of the current state of knowledge regarding the human element in the voting process. The grantee will lay a groundwork for the systematic comparison of different methods of voting, including comparisons of the accuracy of different methods of voting, including ease of use and other factors related to voter confidence in the voting system. This work is especially relevant given the controversy surrounding the November 2000 national elections, and the movement of many political jurisdictions toward the purchase of new voting systems.